Planning Grant to Establish a University/Industry Center on Monolithic Microwave/Millimeter Wave Integrated-Circuit Design

This project is studying the feasibility of an Industry/University Cooperative Center in Monolithic Microwave and Millimeter-Wave Integrated Circuits (MMIC)> It is addressing alternative organizational, policy, and perational possibilities for such a center. Further, the sutdy will identify research interests and requirements of potential sponsor companies. It is also determining if the ultimate goal of becoming self-sufficient with industrial funding is possible.